Androgen Regulation of Early Vocal Learning

Instances of early learning (e.g. language acquisition, imprinting, birdsong learning) illustrate that the nervous system's ability to change in response to experience is exaggerated during distinct sensitive periods in development. This proposal is aimed at identifying biological conditions that foster this developmental plasticity by investigating the molecular mechanisms by which gonadal androgens influence the timing of vocal learning in birds. Drawing on earlier work demonstrating that activation of forebrain N-Methyl-D aspartate receptors is critical for vocal learning, and the closure of the sensitive learning period is associated with a decrease in this receptor subtype, the proposed studies will employ quantitative measures of gene expression to determine if androgens regulate developmental changes in NMD receptor expression and composition to control when learning occurs. The work will broaden our understanding of how hormones affect neural and behavioral plasticity, and also may reveal strategies for augmenting learning and memory in later life.